Resesrch Initiation: Performance Evaluation of Integrated Voice/Data Communication Networks

There is considerable interest in the integration of voice and data in an integrated services digital network which achieves efficient utilization of transmission and switching facilities. The models for these networks are usually analytically intractable or computationally infeasible and simulation studies for these systems are expensive. The objective of this project is to provide tools of practical value that can be used in the evaluation, design, and control of integrated communication networks. A state-dependent decomposition technique to model the congested states of these systems and a hybrid simulation will be used in the investigation.